Presidential Young Investigators Award

In order to improve accuracy and efficiency in the modelling of multi- dimensional flows, a variety of techniques must be developed. These techniques could be developed in parallel, but utilized in combination. First, ways must be found to use multi-dimensional information in the construction of the spatial discretiation. Particularly important is recognizing strong discontinuities in the flow field data, and treating these separately, rather than simply differencing across them. Second, marching methods may be improved and convergence-acceleration techniques introduced through the use of this multi-dimensional information. Third, grid-adaptation techniques may be employed to reduce the truncation error in selected regions of the flow. Fourth, the marching algorithm to be used may be blended with grid-adaptation, specifically through the use of multi-grid techniques.